Mathematical Sciences: Nonlinear Problems Arising from Theoretical Physics

9400243 YANG Three main projects are proposed. The first project is a study of the cosmic string solutions of the coupled Einstein and Yang--Mills--Higgs equations. Problems such as the structure of coupling in view of physical constants and gauge groups, existence and nonexistence of regular stationary solutions will be investigated. Solutions of this type have applications in early universe physics and the theory of galaxy formation. The second project is a study of a variational problem arising from a field-theoretical framework of nuclear interactions. The main problem is to minimize an energy functional among all configuration maps in various homotopy classes. The homotopy class plays the role of a topological constraint which takes an integral form. Existence, regularity, and behavior of the minimizers will be investigated. The third project is a study of the energy gap equation in the Bardeen--Cooper--Schrieffer microscopic theory of superconductivity. Problems such as the determination of the critical transition temperature, the uniqueness of a full space solution, and numerical approximations of superconducting states will be investigated. The proposed research considers nonlinear problems arising from several important areas of theoretical physics, including superconductivity, cosmology, and nuclear systems. The mathematical analysis and solutions will help better understand these problems, open new areas of mathematical research, and enhance the interactions of modern mathematics with physics. The methods developed will also be useful and stimulating to other related fields of applied, numerical, and pure mathematics.